Long Term Behavior of Bond after Interface of Concrete/FRP & Steel/FRP & Coordination of Research on the Utilization of Fibre Composites for Repair/Retrofit of Structures

9732908 Saadatmanesh During the past decade, an increasing level of attention has been paid to fiber reinforced polymer composites as an alternative construction materials. Several studies by various researchers in this area have indicated that one of the most promising applications of fiber composites in construction is in the area of structural repair and retrofit. In particular, research in this field has indicated that epoxy bonded fiber composite sheets and laminates can be used to externally reinforce a variety of civil engineering type structures for seismic and nonseismic forces. The recent NSF workshop on research needs in the area of composites for construction, clearly attests to the promise of this technology and to the need for an effective and coordinated research plan. This project addresses the long-term durability of the bond at the interface of composite/concrete and composite/steel. A large number of short term studies have indicated the effectiveness of fiber composites for strengthening of structures, however, very few, if any at all, have addressed the bond and interface behavior, in particular, the long- term durability of the bond. The successful application of this technology requires a fundamental understanding of the long-term bond behavior. A comprehensive, accelerated aging test program will be developed to investigate the bond under various aggressive environmental conditions simulated by special chemical solutions. Analytical models based on diffusion theories will be developed to predict the rate of diffusion of aggressive elements into the composite and the bond. Fick's law will be adopted to predict the moisture profile, and aggressive elements diffusion into the composite and the bondline. Peck's relationship will be utilized to estimate the life of the bond. ***